The National Science Partnership For Girl Scout Councils & Science Museums

The Franklin Institute Science Museum in Philadelphia, PA, in collaboration with the Girl Scouts of the United States of America, the largest voluntary organization for girls in the world, requests NSF support for the National Science Partnership for Girl Scout Councils and Science Museums. This three-year project establishes partnerships between seven Girl Scout councils and six science-technology museums in six regions across the nation to promote science interest and knowledge in young American women. The project provides hands-on science activity kits and training workshops for Girl Scout leaders that assist them in conducting science activities with their troops. The science activities are directly linked to the existing Girl Scout badge program and help Brownie and Junior Girl Scouts (ages 8-11) fulfill science-related badge requirements. Each council/museum partnership will develop a specific program that involves the local underserved populations in Girl Scout science activities. during the three years of federal support, the National Science Partnership will develop a specific program that involves the local underserved populations in Girl Scout science activities. During the three years of federal support, the National Science Partnership will directly serve 11,500 leaders and 138,000 Girl Scouts. Extensive project dissemination will encourage the involvement of new partnerships and the institutionalization of the National Science Partnership by GSUSA, councils, science museums, and other formal education organizations so that the project has the potential to reach the more than 2.3 million Girl Scouts and 780,000 leaders across the United States.